Collaborative Research: Moths, Ants, and Carnivorous Plants: the Spatial Dimension of Species Interactions

Ecologists have long recognized that coexistence of interacting species depends on a diversity of separate, but linked habitats. Most models of species coexistence treat these habitat "patches" as unchanging elements of the landscape, but in reality, they are constantly changing in size and shape. The structure and dynamics of the food webs that inhabit them both control and depend on these changes. This collaborative project between investigators at Harvard University and the University of Vermont seeks to understand how species interactions change the spatial distribution of dynamic habitat patches across the landscape, and to determine how food webs are structured within and among these patches. The experimental system for this five-year research project is the Sarracenia "microecosystem": the northern pitcher-plant Sarracenia purpurea; the unique food web of bacteria, protozoa, rotifers, mites, and fly larvae that live within its rainwater-filled leaves; three species of bog-inhabiting ants that are the primary prey for this carnivorous plant; and larvae of the pitcher-plant moth, Exyra fax, which cut and drain pitchers and remove food web habitat. Results from surveys of 50 New England bogs and three field experiments conducted at the Harvard Forest Long-Term Ecological Research site will parameterize a simulation model to predict changes in spatial structure of ant, moth, and plant populations, and the structure and composition of the aquatic food web associated with the plant.

There are three broad impacts to this research project. First, the research engages undergraduates, graduate students, K-12 teachers, research assistants, and a post-doc in collaborative research. Second, this research will yield a generally applicable framework for understanding how complex assemblages of organisms assemble, disassemble, and reassemble in spatially-structured changing environments. Third, the use of a model ecological system - the Sarracenia microecosystem - will be expanded to encompass landscape-level dynamics of food webs.